HSI Implementation and Evaluation Project: Western MA Engineering Pathways Program

"With support from the Improving Undergraduate STEM Education: Hispanic-Serving Institutions (HSI Program), this Track 2 project called The Western MA Engineering Pathways Program, will contribute to the national need for increased participation in the engineering workforce by supporting the recruitment, retention, graduation, and transfer of students in engineering programs at Holyoke Community College (HCC), the University of Massachusetts at Amherst, and Western New England University (WNEU). Over a four-year period, the project will identify students from partners Holyoke High School and Westfield High School who express an interest in engineering, develop and test innovative interventions, and support students along the academic pathway. Early engagement with engineering concepts and ongoing comprehensive student supports will bolster STEM identity, self-efficacy, and self-confidence among students in the field. The Western MA Engineering Pathways Program has three goals: 1) Create improved pathways to increase the participation of all students in engineering, 2) Revitalize HCC’s engineering programs to be more responsive to a the student body and to regional employer demands, and 3) Produce fundamental research on building an effective pathway for students in Western Massachusetts that can be implemented and sustained in a way that is replicable nationally. With support from project partners at the Collaborative for Educational Services, the Society for Women Engineers (SWE), and the 50K Coalition, project activities will attract and retain more students in engineering. The proposed project will investigate the lived experiences and decisions surrounding engineering education students in undergraduate engineering education. Research questions will determine how high school and community college students make decisions around pursuing undergraduate engineering education; ; how institutional changes made to address the needs the students surveyed, improve their outcomes and those of other undergraduate engineering students; and how equitable pathway design can be used to shift stakeholders’ foci from institutional outcomes to student-centered outcomes.

Findings from this project will support efforts at each partnership institution as well as at other Hispanic-Serving Institutions seeking to increase of the number of students interested in pursuing engineering as a career. The project team will work with the 50k Coalition to share promising practices and STEM education research findings on a national scale. Improved connection and interaction with local industry will provide employers with a voice in preparing future engineers for the workforce. The HSI Program aims to enhance undergraduate STEM education and build capacity at HSIs. Achieving these aims, given the nature and context of the HSIs across the country, requires innovative approaches that incentivize institutional and community transformation and promote fundamental research (i) on engaged student learning, (ii) about what it takes to increase participation in STEM effectively, and (iii) that improves our understanding of how to build institutional capacity at HSIs. Projects supported by the HSI Program will also draw from these approaches to generate new knowledge on how to achieve these aims.

"